RUI: Organic Acids in Coastal North Carolina Rainwater

Acid rain and acid deposition have become major scientific and political concerns. Rain has a natural acidity due to dissolved carbon dioxide. Although the acidity of rain can be made even greater by the emission of certain gases from human endeavors, other natural sources may contribute as well. Among these natural sources is vegetation which is presumably a source of natural organic acids such as acetic and formic acids. An understanding of the role of organic acids, their origin, and the influence of ecosystems in their origin is relevant to a more complete understanding of processes leading to the formation of acid rain. A primary goal of this project is to establish concentration ranges of formic and acetic acid in rainwater from two distinct but nearby coastal North Carolina environments, a salt marsh and a forest, to evaluate whether an ecosystem can influence the composition of the precipitation that it receives. Rainwater will be collected on an storm event basis during growing and non-growing seasons. The rainwater samples will be analyzed by ion chromatography for chloride, sulfate, nitrate, ammonium, formic acid, and formic acid. The acidity (pH) of the rainwater will be measured as well. A secondary goal is to determine the effect of sampling procedure on the measured concentrations of formic and acetic acids.